New Mexico Analysis Seminars

Abstract
The New Mexico Analysis Seminar is
an annual three-day meeting, now in its fourth year.
Its principal goal is to provide an opportunity for scientific exchange
among mathematics students and faculty in the Southwest
region and beyond. To encourage participation, analysis is defined broadly.
The centerpiece of the seminar is a series of one hour lectures
given by a first rate mathematician who is also a first rate lecturer,
capable of communicating very well with students and faculty. Time is
allocated for shorter talks and informal discussion as well.
The main speaker for
the Fourth New Mexico Analysis Seminar will be Steve Hofmann, who
recently proved Kato's 40 year old conjecture known as
the Square Root Problem.

The New Mexico Analysis
Seminar is playing an important role in facilitating student exposure to
pioneering research and in providing role models for future and present
practitioners and communicators of mathematics in the classroom and in
industry. The need for this is particularly urgent in a region of relative
geographical isolation and limited financial resources. The conference
site alternates between New Mexico State University and The University
of New Mexico, which have the only Ph.D. granting mathematics programs
in New Mexico.